PYI:Process Based Environment Architectures

The goal of this project is to design a 'process-oriented' environment architecture and build tools to effectively support software development in a distributed work-station environment. A process-oriented environment architecture presents itself to the user (e.g., software developer or manager) as a collection of methodological tools supporting the planning and specification of explicit software process models and their controlled execution, rather than as a collection of tools supporting isolated development activities (e.g., coding or testing). This project involves work in a variety of areas including process modeling, environment architectures, measurement, reuse and learning, and experience bases. Example research and development tasks include: o Design of a process-specification driven environment architecture o Definition and implementation of a comprehensive process specification language o Use of measurement data in characterizing project goals and selecting the appropriate software processes to achieve them o Design and implementation of process execution support o Using measurements to improve existing process specifications.